Symposium on Marine Bioinorganic Chemistry for the 4th Congress of North America, Aug. 25-30, 1991, New York City

A three day symposium, entitled "Marine Bioinorganic Chemistry" will be held at the National American Chemical Society Meeting/4th Chemical Congress of North America, August 25-30, 1991 in New York City. The purpose of this symposium is to bring together biochemists, inorganic chemists, bioinorganic chemists, chemical and biological oceanographers and civil/environmental engineers to discuss the recent developments in the emerging field of marine bioinorganic chemistry. Many novel metalloenzymes, metal binding ligands, inorganic compounds and biomolecules. Because the transition metal composition of the ocean is now relatively well defined, the study of the bioinorganic chemistry of the oceans has now become feasible. By bringing together scientists from the fields listed above, this symposium is likely to stimulate new ideas, interests and collaborations in this emerging field.